Critical Transitions in Posture and Locomotor Control

9514544 Woollacott In everyday living, infants and children are continually confronted with potential threats to balance. We need a better understanding of the conditions that make balance difficult, how children respond when balanced is threatened, and how those responses change as children grow and gain experience. By artificially creating a threat to balance, we can observe these different balance recovery patterns and understand the conditions associated with balance control. A second question is how balance recovery strategies change during early childhood and at what stage children benefit from practicing balance skills. To answer these two questions we will create a disturbance of balance by unexpectedly moving the surface on which a child stands. We will record the movement patterns used to recover balance and measure the muscle responses that underlie the recovery movements. The results of the proposed research will contribute to our understanding of normal motor development, and will be particularly useful in clinical settings where the evaluation of balance function of children with motor disabilities such as cerebral palsy is required. These data will serve as a basis for determining the time frame of the emergence of normal balance control and the ability to adapt balance adjustments to changing conditions, so that the performance of children with delays and abnormalities in development can be compared to this norm.